Shock-Waves and Geometry

Mathematical Sciences: Shock Waves and Geometry

0102493
Temple

This project is focused on the interplay between
principles of geometry and the principles of the
mathematical theory of shock waves. There are three main
areas of research. The first is analysis of regularity
and shock formation in initial value problems for weak
solutions of the Einstein equations. The second area is
development of shock-matching methods with application to
blast waves in general relativity. The third area is
investigation of oscillations in systems of conservation
laws, with particular emphasis on analyzing oscillations
that are generated in transonic flow. As part of the
project, we combine Glimm's theory of wave interactions
with the theory of general relativity to analyze shock
wave interactions for Einstein's equations. Since the
Einstein equations contain the compressible Euler
equations as a subsystem, results on shock wave
propagation in general relativity are expected to have
new implications for analysis of shock waves in classical
fluids.

We are developing a theory of shock wave propagation in
Einstein's theory of general relativity. A shock wave is
best known as the blast wave that marks the leading edge
of an explosion. In that case, the shock wave is the
surface between the rapidly expanding material and the
ambient, undisturbed air into which the shock front
propagates. In general relativity, shock waves are waves
in the curvature of spacetime itself. There are thus new
and interesting fundamental issues involved in extending
Einstein's equations to a setting that admits shock wave
propagation. As part of the project, we are constructing
new exact solutions of Einstein's equations that
incorporate a blast wave into the Big Bang -- the
explosion that first set the universe into expansion.
The mathematical results will also have application to
shock waves in ordinary fluids.